Natural Convection Flow Instabilities in Enclosures

Natural convection in concentric spherical annuli experiences different flow regimes depending on the size of the annular gap, the temperature difference between the bounding surfaces, and the type of fluid which fills the gap. The research will determine the operating conditions under which the various flow regimes exist.